Contingent Attentional Capture

SBR-9817673
Charles L. Folk

ABSTRACT

Although the visual world consists of multiple sources of information,
there are fundamental limits on the ability of humans to process multiple
stimuli simultaneously. Thus, a selection mechanism is needed that
determines which sources of information are processed or "attended" at any given point
in time. This selection mechanism is subject to two competing constraints. On
the one hand, efficiency dictates that only those events relevant to current
behavioral goals should be attended. On the other hand, adaptability
suggests that salient stimuli or events that may be relevant to the establishment of
new goals should also be attended. The goal of this research is to explorea
model of how the selection mechanism manages to satisfy both efficiency and
adaptability to produce successful interaction with the environment. The
basic premise of the model is that salient, potentially important stimulihave
the ability to automatically "capture" or drawn attention to themselves, but
that such attentional capture is ultimately contingent on whether theobserver
is set to respond to that property. One series of studies will critically
test this "contingent capture" model against other existing theoretical
accounts. The remaining studies will explore issues such as the functional
stimulus classes for which selection mechanism can be set, and the
functional mechanisms by which these attentional control settings are instantiated. In
addition to elucidating the nature of the selective attention mechanism,
this research may also have important applied implications for the development of
display systems that maximize the efficiency of information transfer between
display and operator, as well as for the diagnosis and treatment of the
"distractability" associated with many mental disorders. Finally, it may
serve as a guiding framework for exploring the underlying brain mechanisms
associated with attentional control.